Conference: 2026 Plasma Processing GRC and GRS

The Gordon Research Conference on Plasma Processing Science (GRC-PPS) is an important meeting for scientists working with plasma, a state of matter similar to gas but with charged particles. This conference is important for the National Science Foundation because it connects different fields like physics, materials science, and advanced manufacturing. It helps scientists understand how plasma can be used for sustainable manufacturing, environmental cleanup, and new technologies. The conference will take place in July 2026 at Proctor Academy in New Hampshire. It will enable researchers to share their latest work on plasmas, which are used in many technologies like electronics and manufacturing. The goal will be to discuss new ideas, solve problems, and learn from each other. The conference will bring together experienced scientists and young researchers to share their work and learn from each other. Students will be able to present their research and get feedback. The event will also help build a community of plasma scientists who can work together on future projects. The GRC-PPS will have sessions on topics like plasma chemistry, materials processing, and plasma-enabled technologies. It will also include a Gordon Research Seminar for graduate students and early-career researchers.

The 2026 Gordon Research Conference on Plasma Processing Science (GRC-PPS) will foster interdisciplinary collaboration and innovation in plasma processing technologies. The conference will convene approximately 125-150 participants, including researchers, graduate students, and postdoctoral scholars, to discuss cutting-edge advancements in plasma processing science. The program will feature invited presentations on diagnostics, modeling, materials processing, plasma-enabled chemistry, and scalable technologies addressing societal challenges. Early-career researchers will have opportunities to present their work, contributing to the conference's dynamic exchange of ideas. The Gordon Research Seminar (GRS), held concurrently, will provide additional avenues for graduate students and postdoctoral researchers to engage with the scientific community. The GRC-PPS will build upon the conference's legacy of fostering critical scientific discussions and shaping future research directions in plasma processing science.